CRCD: Seamless Integration of Information Devices: A Focus on Emerging Technologies in New Product Development

This award provides funding for a three-year Combined Research-Curriculum Development (CRCD) program, Seamless Integration of Information Devices: A Focus on Emerging Technologies in New Product Development," at the University of Pittsburgh, under the direction of Dr. Michael Lovell. The overall objective of this program is to develop an integrated and innovative curriculum, to enhance the product design and entrepreneurial skills of graduates, that incorporates a multi-disciplinary research program across the School of Engineering and into the Katz School of Business.